SGER: Mitigating Access Risks of Browsing Government Date and Websites by Secure Private Portals

EIA-0140304 -Salvatore Stolfo-Columbia University-SGER: Mitigating Access Risks of Browsing Government Data and Websites by Secure Private Portals

This proposal from a computer scientist and a social scientist will study the social and policy implications and citizen perceptions of government gathering of Personally Identifying Information through Federal web sites, and will explore the use of alternative privacy-enhancing technologies. These technologies will be evaluated and further developed. Initial discussions with several interested Federal Government agencies have already begun.